Calcium and Phosphate Regulation in Avian Embryos

During the first half of development, all calcium utilized by the chick embryo is derived from yolk. At mid-incubation, the chorioallantoic membrane grows out and comes in contact with the shell membrane; thereafter it functions in mobilizing calcium from the shell. Excess calcium resorbed from the shell that is not utilized by the chick embryo is deposited in the yolk. Thus while the chorioallantoic membrane transports calcium in one direction (from shell to embryo), the yolk sac membrane is apparently able to transport calcium both into and out of the yolk, by mechanisms that are not well understood. Chick embryos can be raised in shell-less culture, in which the only source of calcium is the yolk. After about mid-incubation, shell-less embryos deplete their supply of calcium from the yolk. These embryos have low blood calcium values, poorly mineralized bones and fail to hatch. Shell- less embryos provided an excellent system for study of yolk sac membrane calcium transport, since their supply of shell calcium is absent. In these embryos, all calcium transport of calcium across the yolk sac membrane is from yolk to embryo. The transport of calcium across the yolk sac membrane and chorioallantoic membranes will be measured in normal and shell-less cultured embryos. The effects of inhibitors and various calcium-regulating hormones on these transport processes will be investigated. Another possible site of calcium regulation in the chick embryo is the kidney. There is almost nothing known about the function of the kidney during development in vertebrate embryos. Birds offer easy access to such studies, since the embryo is separate from the mother. The function of the kidney is filtering, reabsorbing and excreting various ions will be studied at several developmental ages in normal and shell-less chick embryos. Additionally kidney function will be studied in embryos treated with several calcium- regulating hormones. //